Northeast Ethics Education Partnership

The Northeast Ethics Education Partnership (NEEP) between Brown University, Providence, RI and the SUNY College of Environment, Science and Forestry School, Syracuse, NY, is a new initiative for developing regional research ethics/cultural competence training for environmental science, studies and engineering graduate students in Central New York and at Brown University. In this partnership, the research team is conducting faculty and student mentoring workshops on research ethics training combined with cultural competence/relativity training. Three summer workshops are planned for graduate students at SUNY-ESF and for four other universities in the central NY region. The team also will conduct Train-the-Trainer workshops at three national society meetings in environmental scsience and studies to share resources with participating faculty and graduate students for research ethics/cultural competence training. The NEEP is developing a website with research ethics/cultural competence training materials and curriculum modules with case study references, ethical guidelines and applied ethical advice. On-line training opportunities also will be available.